Supersonic Aircraft Emission Signals in Satellite & GCMAM Microwave Maps

Abstract ATM-9503277 Shah, Kathryn P. Columbia University Title: Supersonic Aircraft Emission Signals in Satellite & GCMAM Microwave Maps Aircraft emissions can potentially change the regional and global climate through their greenhouse interaction with reaction with radiation and though their photochemical interaction with ambient atmospheric species such as ozone. Supersonic aircraft exhaust adds water vapor, NOx, CO2, sulfur, soot, and cloud condensation nuclei to high altitudes (20 km) in the stratosphere. Current atmospheric forcing by aircraft emission will no doubt be amplified by the increased supersonic fleet planned by 2015. A microwave radiative transfer model can be enhanced to work with Global Climate-Middle Atmosphere Model (GCMAM) experiments. These GCMAM experiments predicted the atmospheric impacts of water vapor and ozone perturbations from supersonic aircraft emission. The signature of the supersonic ozone and water vapor perturbations can be sought in NOAA satellites' Microwave Sounding Unit (MSU) data based on the GCMAM microwave maps produced by microwave radiative transfer model. The GCMAM microwave maps can also assess the progression of changes at different altitudes during the GCMAM's time integration as compared with actual satellite data. Finally, this would lead into future research investigating the importance of the emission signal relevant to other anthropogenic signals and to natural variability given current and future satellite resolution and sensitivity. This is a Research Planning Grant.